Collaborative: TUES: Software Defined Radio Laboratory Platform for Enhancing Undergraduate Communication and Networking Curricula

PARTICIPATING INSTITUTIONS:
Wright State University (Lead)
Miami University Oxford Campus
Central State University

PROJECT DESCRIPTION
This effort is building on a previous NSF supported CCLI project "Evolvable wireless laboratory design and implementation for enhancing undergraduate wireless engineering education", in which the team developed and demonstrated lower cost, software defined radio (SDR) based laboratories for three undergraduate courses. The collaborating team is now extending and expanding the software defined radio based laboratories throughout the communication and networking curriculum at multiple institutions. The project is developing a suite of experiments and laboratories for insertion in a sequence of courses (ranging from freshmen year introductory course - to senior year elective courses and capstone design projects) that vertically integrates the SDR-based experiment approach.

The three largest sub-disciplines within electrical and computer engineering (ECE) are computers, communications and power. Wireless technology requires all three to be addressed in a related engineering degree program. The recent availability of inexpensive software radio platforms makes it possible to create a hands-on educational experience for all ECE undergrads. The team is producing a scalable and transferable model for redesigning undergraduate electrical engineering and computer science courses to include lab-based learning opportunities for students in more classes.

The project is evaluating and comparing the teaching effectiveness of the SDR approach to that of traditional hardware equipment approach. The SDR approach and laboratory suite are being implemented and institutionalized at the three participating institutions - Wright State University, Miami University (a mostly undergraduate serving institution), and Central State University (an HBCU) - to study the potential for enhancing student learning and adaptation by other institutions.

BROADER SIGNIFICANCE
The project is positively impacting STEM education in the state of Ohio. It is also helping recruit high school students into STEM fields and benefiting a diverse population of students. The participation of Central State University (a HBCU) is helping to recruit and train minority students and serving as an example for other minority institutions in the nation. The cutting-edge technology on which the proposed course lab development is relatively inexpensive; while the software used is GNU software radio, which is free and has a large supporting community.

The project materials and the results of evaluation & assessment are being broadly disseminated and made freely available via a course website, publications, and potential books. Results from the effort are informing the development of a national model for wireless communication & networking courses. The project is helping to develop and produce a workforce with the skills necessary to meet the societal demand of the new wave of wireless IT.